2012 Solid State Chemistry Gordon Research Conference

TECHNICAL
The 2012 Gordon Research Conference (GRC) on Solid State Chemistry funded by the Solid State and Materials Chemistry Program will be held at Colby-Sawyer College July 22-27, 2012. The focus of this conference is the design and properties of materials for energy and environment applications. This conference highlights the challenges that we face in producing enough energy while maintaining our environment. Sustainable development of alternatives to fossil fuels is a challenging endeavor. To face this fundamental issue, the design of new compounds, the optimization of existing materials and the understanding of the relationship of structure and physical properties require a multidisciplinary approach in which Solid State Chemistry is the bedrock. To this end, the conference brings together a diverse array of scientists to discuss the latest advances and challenges in Solid State Chemistry. Speakers and poster presenters are explicitly encouraged to emphasize advances, unpublished results, new and risky ideas on a variety of current topics. The organizers strongly encourage active contribution to discussions and participation in poster sessions, which offer an excellent opportunity for presenting new and exciting research. Solid State Chemistry is a multidisciplinary field whose importance continues to increase not only with the discovery of new classes of materials, but also through a deeper understanding of the diverse properties of solids made possible by modern techniques. The importance and scope of the field has grown in response to the continuing challenge to understand, control, and predict the structures and properties of solids and the need to synthesize new materials with enhanced physical properties.

NON TECHNICAL

This meeting will directly impact all of the attendees by providing an open atmosphere for exchange of ideas on the cutting edge of Solid State Chemistry. GRC provides the framework for fostering an open attendees at each of its meetings. There is time for informal discussion and the manner with which the meals are provided ensures that all participants can interact during the meeting. The speakers are expected to convey unpublished and cutting edge information to their colleagues with the objective that this disclosure will stimulate expansive discussion among all attendees and progressively advance the field. The inclusive, collegial atmosphere of the GRC, and the emphasis on sharing previously unpublished information, enables the cultivation of innovative approaches to address the most important challenges facing our world. This strategy is a hallmark of GRC and has served the scientific community and facilitated the advancement of science for over eight decades. There is special funding for underrepresented groups. The intent of this meeting is to promote the exchange of ideas and the building of partnerships between researchers from the academic world, industry and government laboratories. Many younger scientists are included in the program along with more senior and distinguished scientists, promising to make the presentations and discussions representative of new directions in the field.